Acquisition of a Nuclear Magnetic Resonance Spectrometer

9414192 Purchase of a Nuclear Magnetic Resonance Spectrometer The Department of Chemistry at Princeton University requests funds from the Chemistry Research Instrumentation and Facilities program for the purchase of a nuclear magnetic resonance (NMR) spectrometer. Currently, the only high field NMR spectrometer at Princeton University is a seven year old JEOL GSX-500. This spectrometer is the critical limiting factor to the following projects involving Chemistry faculty members and their groups. * Warren S. Warren Recent demonstrations of intermolecular coherence transfer between proteins and bulk water in solution open us a variety of novel applications to enhance signals in biomolecular NMR and imaging. 600 MHz data on a modern spectrometer with high sensitivity probes and fast gradient pulses (done in collaboration) have proven the importance of the technique. 500 MHz data with the existing spectrometer are essentially useless for these studies. * Dan Kahne Multi-dimensional NMR is used extensively in a major project directed towards understanding DNA-carbohydrate interactions. 500 Mhz spectra show severe spectra overlap in these systems, which have been shown to be substantially reduced in 600 MHz spectra. * Michael Hecht Systematic design and synthesis of novel proteins for compartive studies of structure and properties depend on multi-nuclest, multi-dimensional high-field NMR for complete assignment and solution structure determination. 600 Mhz studies have been started in collaborative work. * John T. Groves Extremely high sensitivity proton NMR is required for structural investigations of small molecules dissolved in phospholipid membranes, and for studies of kinetics of transmembrane ligand exchange. The current 500 Mhz is not sufficiently sensitive for much of this work, which is part of a broad program to study the function and dynamics of cellular membranes. * Jannette Carey Studies of protein folding and s tabilty and the relation of these properties to ligand-binding activity require access to multi-dimensional NMR capabilties with the dispersion afforded by a modern 600 MHz spectrometer. These research areas, spanning biostructural and physical chemistry, present an extremely diverse set of requirements that can only be met by a 600 MHz spectrometer. Moreover, the addition of a second high field would provide necessary capacity for less restrictive utilization of the existing 500 MHz spectrometer.